Mathematical analysis of dynamic activity patterns in neuronal network models

Rubin

The investigator develops and applies mathematical techniques for
the study of activity patterns in conductance-based neuronal network
models, which include biophysically relevant time scales and
parameters, and in activity-based models, in which the temporal
variation in the cumulative activity of a neuronal population is
tracked with a single equation. The models analyzed include features,
such as spatially continuous coupling, temporally varying input
patterns, and heterogeneity in parameter values, that have largely
been neglected in previous mathematical work yet which are relevant in
a wide range of neuronal systems. The mathematical methods developed
relate to the derivation and subsequent analysis of subsystems of
equations capturing dynamics on disparate time scales. Further, the
study of biophysically-based models is complemented by the development
of a new and broadly applicable inverse approach, in which
observations of network dynamics is used to constrain possible
patterns of connections between cells in the network in cases where
this connectivity has not been experimentally determined.

The mathematical study of neuronal network models in this project
is motivated by experimental data on changes in neuronal rhythms
between normal and parkinsonian conditions; by activity of neuronal
populations involved in navigation; and by the behavior of neurons
that help to drive respiration. In each of these settings, networks
of neurons perform particular tasks by engaging in, and switching
between, organized firing patterns. Correspondingly, this project
elucidates the mechanisms that allow the relevant networks to support,
and to modulate between, particular modes of activity. These
analytical results lead to general conclusions about how various
components combine to shape neuronal network dynamics, with their
particular contributions teased apart in a way that would be difficult
to achieve with a purely experimental approach. The understanding
gained is well suited to guide future biological and computational
experiments. In particular, this project promotes an
interdisciplinary partnership with J. Smith's lab at NIH, which allows
for direct access to experimental data and testing of model
predictions. Students engaged in the work receive interdisciplinary
training in an important area of interest to both mathematics and
biology.